SCREMS: Developing Computational Mathematics at the University of Florida

This grant provides funding for augmenting the computational resources
in the Mathematics Department of the University of Florida. Four
research projects which require the new resources are proposed: The
first project on sparse matrix algorithms incorporates state of the
art optimization strategies and multilevel heuristics into sparse
matrix algorithms, with particular emphasis on techniques that can
exploit and can be applied to parallel computing architectures. The
second project aims to develop a new set of methods for solving
partial differential equations on complicated structures. The third
project centers around algorithms for the reconstruction of three
dimensional tomographic images of internal regions of the human
body. The fourth investigates nano-scale materials using simulations
based on mathematically sound simplifications.

The success of the research activities will have impact beyond
computational mathematics through collaborations in biomedical
engineering, computer science, electrical engineering, and
medicine. Specific applications considered include the simulation of
lightning with potential benefits to air traffic control, the
biomedical engineering of cardiac ablation technology potentially
benefiting patients with arrhythmias, improved tomographic
reconstruction algorithms for medical imaging potentially leading to
better diagnostic tools, and better predictions for the properties of
nano-scale materials which are challenging to fabricate with current
technology. Students and young researchers will benefit from the new
resources by rigorous training in mathematical courses combined with
practical computational training using problems arising from
large-scale applications.